Photoperiod and Non-Neuronal Brain Cells

Nunez 9514374 The brain and its cells are unique in their ability to change in response to their internal surroundings and the animal's experiences. This ability to adapt can be demonstrated at the molecular, cellular and behavioral levels. One of the most plastic cells in the brain are not even nerve cells, but are peripherally derived mast cells. The mast cells and glial elements provide an enriched environment in which the nerve cells function. However, much is unknown about the mast cells in brain especially their function and anatomy. Dr. Nunez is assessing the ability of daylength, a strong environmental cue, to alter the anatomy of brain mast cells and their central nervous system location. These investigations lay the foundation for studies on the influence of mast cells on adaptive behaviors and other neurochemical changes. These investigations will provide significant basic information about the interplay between the environment and brain function. This information will then be used to further understand the how environmental factors increase or decrease species survivability in the wild or captivity.